Presidential Young Investigator Award: Structural Systems Research

The area of research to be undertaken is in the general field of bridge engineering. The first topics to be studied are: the estimation of prestress losses in existing bridge members and the fatigue of tendon anchorages and coupling joints. The results of the research will be useful to upgrade and rehabilitate existing bridges.